Partial Support for the Institute of Laboratory Animal Resources, National Academy of Sciences

The Institute of Laboratory Animal Resources (ILAR) is a component of the National Academy of Sciences. The Institute's major goal is to provide information that will help to improve the availability, quality, care, and humane and scientifically valid use of laboratory animals. More specifically, ILAR is responsible for developing and making available guidelines for animal care, use and breeding; for describing animal models for human diseases and physiological processes; for providing source data on commercial and non-commercial stock colonies; and for conducting surveys of animal facilities and resources. During its 35-year history, ILAR has established itself worldwide as a key advisory group in the labotory animal field. This project will provide partial funding for ILAR for the next three years. The funds will be used as partial support for the Animal Models and Genetic Stocks Information Exchange Program, for the publication of ILAR News, for the meetings of two standing committees (the ILAR Council and the Committee on Animal Models and Genetic Stocks) composed of noted experts in the field of animal care, and for other general operating expenses of the Institute.